A Requirements and Specification Environment

This is an award resulting from a submission in response to Program Announcement NSF 87-63, Research Experience for Undergraduates, 1987. Under this award Tulane University will provide twelve undergraduate students with training and support while they participate in ongoing research projects in the University's Computer Science Department. The award recognizes the importance of hands-on experience in active research for training undergraduates for careers in mathematics, science and engineering, and that too few such experiences are now available.